MRI (Planing Grant): Functional Studies of a Novel- Developmentally Regulated FABP

9515002 De Leon When nerve cells grow they must add new cell membrane. This process requires mechanisms in the cell that carry the lipid molecules neccessary to build the membranes. In this study a specific protein that binds fatty acid has been isolated and it is now proposed to determine whether it is involved in the mechanisms that enable the nerve cell to extend processes. This work will help to understand the process of nerve growth and regeneration.